Algorithmic Studies in Applied Geometry

This investigation has three major objectives: (1) to add new algorithms and methodologies to the repertoire of geometry techniques, including new approximation methods and algorithms that are simpler and easier to implement than ones; (2) to formulate precise algorithmic versions of a large body of geometric problems from allied fields, in such a way that the of computational geometry can be applied successfully and so that the community of largely theoretical computational geometers can properly exposed to the more practical applications of the (allied fields include cartography, computer vision, design, graphics, manufacturing, etc); and (3) to disseminate methodologies of computational geometry to applied researchers who work in allied fields but who have been largely unaware of progress in computational geometry, particularly since it has been construed as a primarily theoretical instrument. The third objective is through discussions of research directions with contacts in research labs and through publishing papers for conferences and in journals whose readership includes a breadth of engineering disciplines.